ACSAC 2013 Student Support

This award will provide travel funding and conference registration fees for US-based undergraduate and graduate students to attend the 2013 Annual Computer Security Applications Conference (ACSAC) to be held in New Orleans, LA on December 9-13, 2013. ACSAC is a top-tier academic security conference that regularly brings together the foremost minds in academic, governmental and commercial computer security to both address the most pressing problems in applied computer security, as well discuss seminal works in information security. The broader impact will be to facilitate interaction, and to groom the next generation of security professionals.